Computer Demonstrations in Undergraduate Mathematics Classes

This project will support the purchase of equipment which will enable instructors of undergraduate mathematics courses to integrate computer demonstrations into their lectures. It is being funded under the Instrumentation and Laboratory Improvement (ILI) Program, which has the goal of supporting projects to develop new or improved instrument-based undergraduate laboratory courses in science, mathematics, or engineering. The Instrumentation and Laboratory Improvement Program provides matching support for the instrumentation necessary to implement undergraduate instructional improvements at U.S. colleges and universities. In particular, the main objective of this project is to enable instructors to show more realistic examples and demonstrate the use of the programs and languages they expect their students to use. The part of the curriculum targeted for improvement in this project is a group of courses with an applications emphasis designed for science and engineering majors. The courses to be affected include differential equations, Fourier analysis, linear algebra, numerical analysis, linear programming, combinatorics, and number theory.